Fan Sedimentation and Tectonics on the Northern South American Margin: Participation in the R/V HESPERIDES Cruise to the Magdelena and Orinoco Fans

9712079 Pirmez This grant will support participation in a research cruise to the Magdelena and Orinoco fans on the Spanish ship Hesperides. The PI will synthesize morphologic data on the channel systems to determine the effect of tectonics and turbidity currents upon the Magdelena Fan. A secondary goal is to determine whether channels on the Orinoco Fan are braided and if so what process might control this.